Algebraic Geometry and Quantum Field Theory of D-Branes

Abstract

Award: DMS-0606578
Principal Investigator: David R. Morrison, Paul S. Aspinwall,
M. Ronen Plesser

A D-brane, roughly, is something on which an open string may end.
Any detailed exploration of this notion quickly reveals that the
rough notion is too crude, and that all of the subtleties of the
geometry of string theory come into play in full force in
describing D-branes. The proposers will investigate both the
mathematical and physical properties of D-branes, drawing upon
techniques from algebraic geometry (particularly complex
threefolds), homological algebra, and derived categories on the
mathematics side, and on quantum field theory and supergravity
from the physics side. The proposers anticipate that the study
of the complementary mathematical and physical aspects of this
story will shed light on each other, and that new results in both
pure mathematics and theoretical physics will be obtained as a
consequence.

This study is part of a broader exploration of the mathematical
aspects of an important current theme in theoretical physics:
modeling the particles and forces of nature using one-dimensional
objects ("strings") instead of the traditional zero-dimensional
objects ("points"). Physical models of this kind are
quantum-mechanical in nature but also model the gravitational
force, thus reconciling one of the great puzzles in theoretical
physics (namely, the apparent incompatibility of quantum
mechanics and Einstein's theory of gravity). One of the
important discoveries of the past decade is that strings may have
endpoints which are constrained to lie in particular directions.
The places where the endpoints of strings "attach" are known as
D-branes, and these will be the subject of detailed mathematical
study in the current project.